Local and global methods in homotopy theory

ABSTRACT

The PI will investigate how systematic phenomena in the homotopy
groups of spheres is reflected in arithmetic phenomena occurring in
modular and automorphic forms. The stable homotopy groups exhibit
chromatic layers of periodic behavior. The PI will continue his work
studying how the moduli space of elliptic curves, and the theory of
modular forms, detects the second chromatic layer. The PI, with his
collaborators, will investigate generalizations that relate the higher
chromatic layers to Shimura varieties, and their automorphic forms.
The unstable homotopy groups of spheres will be investigated within a
similar algebro-geometric framework using the Goodwillie tower. The
PI will study the relationships between ramification phenomena in
number theory and unstable phenomena in homotopy theory that arise.

The PI's work studies higher dimensional geometry using the theory of
numbers. The spaces of elliptic curves and their generalizations that
the PI is studying are central objects in number theory, playing a
pivotal role both in Wiles' proof of Fermat's last theorem and in
Harris and Taylor's proof of the local Langlands correspondence.
Geometry in higher dimensions occurs in economics and physics. The
study of number theory gives rise to the encryption systems that allow
for the secure transmission of data, such as those used by secure web
pages. The links between the seemingly disparate fields of geometry
and number theory that the PI proposes to investigate will encourage
dialog that breeds new science, produce problems suitable for engaging
students in research activities, and stir public interest in the
mathematical sciences.